Research Experiences for Undergraduates at Pennsylvania State University

Dr. Patricia A. Bianconi and other members of the Chemistry Department of Pennsylvania State University are being supported to continue a Research Experiences for Undergraduates (REU) site in Chemistry. For the period 1993-5, ten undergraduate students will spend ten weeks each summer actively engaged in a variety of research projects. Projects cover the traditional and newer areas of chemistry-analytical, bioorganic, biophysical, inorganic, organic, physical and materials. A unique feature of this program is a series of seminar programs designed to broaden their knowledge of chemistry and chemical instrumentation both from a theoretical and practical viewpoint.